Tropical and Monsoon Studies

Most of the solar energy that drives the atmosphere enters through the tropics. Understanding how the atmosphere behaves depends then on understanding how the tropical atmosphere and its major weather systems work and relate to the extratropics. This project involves the study of the dynamics of large-scale atmospheric motions in the tropics and in the Asia-Pacific monsoonal region. The principal investigators will combine several approaches, including theoretical and numerical modeling as well as analysis of observational data, to investigate a variety of motion systems. These systems include the planetary scale 30-50 day oscillations, propagating and stationary tropical waves, zonally varying mean flows and related disturbances, and the various monsoon circulations ranging from the summer monsoon trough over East Asia (Mei-yu) to winter monsoon cold surges. The purpose is to understand the structure, behavior and dynamic and thermodynamic mechanisms of these systems and the interactions and interrelationships among them. Possible interactions of these motion systems with weather and climate outside of the tropics and monsoon regions will also be investigated.